Leading Mathematics Education Into the 21st Century

Two major reports calling for substantial revision in K-12 mathematics teaching were issued during the 1988-89 school year. The National Council of Teachers of Mathematics issued "Curriculum and Evaluation Standards for School Mathematics" and the Mathematical Sciences Education Board issued "Everybody Counts". These reports indicate a national critical need to (1) broaden the understanding of leaders of the mathematics education community in the United States of the underlying reasons for making changes in mathematics curricula, (2) develop state and national networks for the dissemination of information about the reforms proposed in the two reports, and (3) cultivate a more positive and conducive environment across the country for making changes in mathematics education. In order to increase the likelihood of implementing the reforms called for in these documents, the Association of State Supervisors of Mathematics will institute a reform program beginning with six regional conferences for 900 leaders in mathematics education strategically distributed across the country. These conferences will (1) address the content implications and recommendations contained within the two reports, (2) develop teams of regionally networked leaders to serve as change promoters within their states, (3) develop a set of project materials to include the major mathematics reform documents and speakers' kits to be distributed to each conference participant, and (4) organize a range of follow-up activities to ensure that these leaders become involved in the local dissemination and implementation of the recommendations. Cost sharing by the partners will total 100% of the National Science Foundation funding.